Joint COLUMBIA-CUNY-NYU Number Theory Seminar

Principal Investigator: Dorian Goldfeld
Proposal Number: DMS- 0312270
Institution: Columbia University

Title: Joint Columbia-CUNY-NYU Number Theory Seminar

Abstract

This grant will support a joint Columbia-CUNY-NYU number theory seminar in which the latest developments in the subject are quickly presented (if possible by the innovators themselves) to the New York and surrounding areas community of number theorists. In addition, there will be a yearly miniconference focussing on important recent breakthroughs and invited speakers will remain in the New York area for several days allowing for significant interaction with the New York number theory community.

The primary focus of the seminar and yearly miniconferences is to enhance research and learning. The main impact will be on the NYC area, and especially on students, postdocs, and faculty located there giving the NSF an opportunity to indirectly fund a very large constituency of researchers.